PECASE: The Mechanics and Control of Hydrodynamic Schooling

The Mechanics and Control of Hydrodynamic Schooling

Hydrodynamic interactions among fish swimming in a school can
dramatically reduce the school's collective drag. This drag reduction
has been documented experimentally, but the interactions responsible are
not fully understood. This problem is of basic scientific interest, but
it is also of engineering interest. Biomimetic underwater vehicles are
being developed within the robotics community to exploit performance
advantages enjoyed by marine animals; the concurrent deployment of
schools of underwater vehicles for distributed environmental sensing or
military reconnaissance is a common objective.

In order to derive energy efficiency through fluid-structure
interactions, particularly in the context of schooling, practical
underwater vehicles will need to employ feedback systems incorporating
distributed flow sensor data into motion control algorithms. No such
systems exist, but novel flow sensors comprising micromachined hair
cells provide a platform for their development.

This project will produce analytical and computational models
illuminating the dynamics of schooling, advancing methods from the field
of geometric mechanics to enable the analysis of both the energetics and
the stability of coupled swimming. A robotic prototype will be developed
with integrated biomimetic sensing and actuation, and control methods
will be derived for this system to demonstrate energy-efficient wake
drafting and vortex-assisted turning, two essential components of
schooling locomotion.